Expanding the Accessibility of NSDL for Mobile Learning

The project addresses critical user needs around learner experiences related to the use of small wireless computing devices and the NSDL by building a prototype service and evaluating its educational impact on informal and structured mobile learning in both K-12 and Higher Education, with a focus on grades 9-14 (high school and lower division undergraduate) and use of PDAs, cell phones and music/video players. As the goal is to improve accessibility of the NSDL to diverse populations, evaluation test sites include inner city schools and outreach programs in Oakland/Berkeley. The project is (1) providing metadata recommendations for STEM education digital resources that utilize mobile devices; (2) implementing and testing user profile, personalization features and aspects of the local environment to support small mobile devices to interface with NSDL collections; (3) implementing personalized workspaces, search and metadata browser for small window form factors and aspects of the local environment; (4) testing prototypes in both structured and informal mobile learning activities in grades 9-12 and with lower division university students; (5) developing pedagogically-sound use scenarios of mobile learning with NSDL content; and (6) providing recommendations for mobile device services for the NSDL community that emerge from our prototype testing and evaluation.